Analysis of the Long Term Record of Arctic Airborne Particle Composition

This is a renewed investigation of the trace constituents in arctic aerosols, using the Instrumental Neutron Activation Analysis (INAA) technique. The technique is extremely sensitive and powerful, capable of determining the concentration of about forty elements, including many environmentally crucial ones such as aluminum, zinc, arsenic and antimony that are present in very low concentrations. As a first priority, this study will complete the analysis of filtered samples obtained by the Atmospheric Environment Services of Canada on Ellesmere Island since 1980, and secondarily will analyze samples obtained at Mould Bay and Igloolik during the winter/spring transition. The occurrence of arctic haze, the general term for aerosol concentrations in the lower troposphere, reaches a seasonal maximum in late winter when it becomes widespread through the arctic. The variation is the result both of seasonal differences in the northward transport, and in the removal process through wet and dry deposition. Multivariate factor analysis, potential source contribution functions, and time series analyses, combined with air mass trajectories will provide advective patterns that will refine our understanding of the transport mechanism and atmospheric pathways from the source regions to the Canadian Arctic, and allow the investigations of trends in the relative composition of the arctic aerosol trace constituents.